Providing Evaluative Services for the NSF Graduate Fellow- ship Program, NSF Minority Graduate Fellowship Program and Accompanying Ancillary Services

This grant provides for the following services: (1) Processing and evaluative services for the National Science Foundation Graduate Fellowship Program; (2) Processing and evaluative services for the National Science Foundation Minority Graduate Fellowship Program; (3) Funding for a subcontract with the Educational Testing Service, Princeton, New Jersey to supply appropriate Graduate Record Examination data associated with applicants for the Graduate Fellowship Program and the Minority Graduate Fellowship Program and for the payment of test fees for approximately 1,800 applicants; (4) Ancillary services including the updating and maintaining of the Cumulative Index, Institutional Code Book, Fellowship Opportunities Booklet and Annual Survey of Tuition and Fee Charges.